Engineering Research Equipment: High Power Laser System for Measurement of Unsteady and Electrodydrodynamic Flow Phenomena

Abstract CTS-9500409 Miles & Lempert Princeton University A high power, 10 Hz repetition rate, flashlamp-pumped dye laser system will be purchased to serve as the optical source for advanced optical diagnostics. A variety of fluid mechanics experiments will use this equipment, including measurements of velocity profiles in electrogydrodynamic flows, the use of Raman-based interrogation schemes for flow tagging in air, measurements of vortex breakdown in a cylinder and fundamental turbulence measurements. The research programs of five faculty members will benefit from this equipment.